Research Experiences for Undergraduates in Chemistry at Worcester Polytechnic Institute

Professor Alfred A. Scala and other members of the Chemistry Department of Worcester Polytechnic Institute are being supported to establish a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-92, nine undergraduate students will spend eight weeks each summer actively engaged in a variety of research projects. The focus of the research projects will be photochemistry and spectroscopy, but these techniques will be used in a variety of areas including catalysis, biochemistry, dynamics, molecular modeling, organic synthesis, and polymer chemistry. Students will present their results in informal and formal seminars during the program.